Isostasy of the Southern Oceans

9521518 Sandwell Radar altimeters abroad the Geosat and ERS-1 spacecraft have mapped the marine gravity field over nearly all of the world's oceans to a high accuracy and spatial resolution. In the wavelength band 15 to 700 km, variations in gravity anomaly are highly correlated with seafloor topography. Since many southern ocean areas are sparsely sorveyed these new satellite altimeter data reveal many previously unsurveyed features. The objectives of this work are to accumulate all available depth soundings, use the short wavelength satellite gravity information to interpolate between ship soundings, extract regional variations in the topography/gravity transfer function and relate them to tectonic province, and examine variations in topography/gravity transfer function at spreading ridges with regard to spreading rate. ***